Undergraduate Faculty Enhancement Workshop on Advanced Undergraduate Laboratory Experiments Using Lasers

9354003 Parks The University of Tennessee proposes to extend the Faculty Enhancement Workshop entitled "Advanced Undergraduate Laboratory Experiments Using Lasers" for two years, 1994 and 1995. The workshop emphasizes the development and implementation of experiments utilizing lasers primarily suitable for advanced undergraduate physics and chemistry laboratories. It is a practical, hands-on experience where the participants perform approximately ten unique laser-based experiments. It also features three construction projects, holography, computed-aided instruction in laser safety, and field trips to several nearby federal, state and private laser labs. ***